(e,2e) Studies of Autoionizing Resonances

(e,2e) experiments in the autoionizing region will be carried out on Zn, Cd and Hg. The data will provide a rigorous test of theory and will yield fundamental information on the direct and autoionizing components of the spectra in these complex atoms.